CAREER: Multidimensional THz Imaging and Collaborative Research Oriented Education

9984896
Cheville

A research program using optoelectronically generated pulses for imaging
and characterization in the far infrared (FIR) spectral region will be
integrated into a curriculum providing research opportunities for
undergraduate students.

Research Career Goals: A technique for broad bandwidth imaging in the far
infrared spectral region will be developed based on phase coherent
detection of scattered radiation. Applications include biomedical
imaging, nondestructive evaluation, and noncontact semiconductor
characterization. This new approach will address spatial resolution,
sample limitations, and chemical content mapping. The proposed technique
is based on the existing ability to generate well characterized pulses of
THz radiation.?? Specifically the research program will:

Increase the power available in a compact, reliable THz source by at
least two orders of magnitude through enhancement of existing technologies,
and collaborative work on magnetically enhanced THz sources.

Develop new sources including dipole antenna arrays to be integrated with
a programmable phase modulator to generate optically steerable far infrared
radiation. These array sources combined with electro-optic imaging systems
will generate free space electromagnetic waves with soliton-like properties
and applied to applications inTHz tomographic imaging.

Existing work utilizing a THz impulse range for direct scattering
measurements will be extended to measure inverse scattering using multiple
sources and detectors.

This proposal seeks to open an underutilized region of the electromagnetic
spectrum to practical engineering applications with profound impact across
a wide spectrum of disciplines.

Educational Career Goals: The thesis of the educational component of this
proposal is that most students lack practical preparation for the demanding
and cross-disciplinary tasks required in research. A unique photonics
curriculum, based on a model implemented by the PI on a small scale for
three years, will be developed in which students will be given practical
technical skills during the freshman or sophomore years. This curriculum
will provide training in the cross-disciplinary area of photonics and
specifically:

Make use of practical, hands-on research training in an apprenticeship
model, similar to the teaching hospital of medicine at the freshman and
sophomore level.

Introduce students at the junior level to photonics research through a
problem based learning laboratory course.

Provide independent research opportunities for senior students.

Use effective pedagogies for education including scaffolding,
collaborative learning, and communities of research practice to target
under-represented students in Science, Mathematics, Engineering, and
Technology (SMET) to improve retention. Particular efforts will be made to
recruit women for the program.

Be based on a structure that is easily exportable to other programs or
subject areas, involve the use of representatives from industry and
educational consultants for assessment, and provide for the dissemination
of the developed educational materials.
***